Calculus and Computer Science Classroom Laboratory Equipment

This project provides an interactive setting for calculus and computer science students. The laboratory equipment includes 12 microcomputers linked by a LAN to a minicomputer. This provides a broad range of problem solving and graphing capabilities with sufficient computational power and graphics resolution to enhance the learning process. The grantee provides funds for this project that are an equal match for the NSF award.//